Shifts in Scholarly Attention among World Regions

SES-1123509
Charles Kurzman
University of North Carolina at Chapel Hill

Abstract

How Social Science Maps the World

How does American social science observe the world? This project examines social-scientific journal
articles, books, doctoral dissertations, and disciplinary awards to see how often each world region has
been studied over the past half-century. The dataset that this project generates will allow us to track the
trends in scholarly attention to various parts of the world, and to test theories in the sociology of social
science about how researchers select subjects for study.

The patterns that emerge from this research will help to inform social scientists and educational policymakers about trends and possible gaps in scholarly attention to different regions of the world. The
internationalization of American higher education has been a longstanding concern in academia and in
policy circles; this work moves the debate beyond the overall level of internationalization to a more
detailed break-out of internationalization by region. The project includes a dissemination phase in order to
present the results of this research to annual meetings of national professional organizations, in order to
spur discussion of the research findings and explore educational policy responses.